RET Site: Wood to Wheels - Research Experiences for High School Teachers in Sustainable Transportation Technologies

This award provides funding for a three-year continuing award to support a Research Experiences for Teachers (RET) in Engineering Site program at Michigan Technological University (MTU) entitled, "RET Site: "Wood-to-Wheels"-Research Experiences for High School Teachers in Sustainable Transportation Technologies, under the direction of Dr. David R. Shonnard.

The goal of this RET in Engineering Site is to provide six-week summer, in-depth, multidisciplinary research experiences and concurrent curriculum development activities for 21 high school teachers (7 per year) over a three year period in a "Wood-to-Wheels" (W2W) forest-based biofuels transportation enterprise. The development of domestic renewable energy alternatives to replace imported fossil fuels has been identified as a grand challenge by many government agencies and scientific institutions. The production of new liquid transportation fuels derived from renewable forest resources can achieve many sustainability objectives; including reduced greenhouse gas emissions, energy and food security, domestic as well as rural job creation, and improved balance of trade. The research and development needed to achieve these sustainable energy goals will rely on a future supply of diverse engineers and scientists with a balance of technical expertise and an understanding of the broader issues that may be categorized under the term of "sustainability". This RET Site will increase the level of teachers' sustainability literacy and technical knowledge of the forest-based biofules life cycle. The faculty research mentors will also gain a deeper understanding of STEM education issues at the high school level and the collaborative course/laboratory teaching units will lead to improved teaching of engineering concepts, methods, and practices for both the teachers and faculty alike. The W2W RET will result in changes in secondary school classroom teaching and will lead to enhanced engagement of high school students who are better prepared and have the vision to pursue sustainability-oriented STEM education.